Aiming High: Probing the Mystery of Ultra-High Energy Cosmic Rays

This Communicating Research to Public Audiences (NSF 03-509) project in partnership with the American Museum of Natural History seeks to increase public understanding of research being conducted at the Pierre Auger Observatory that will be shown in 22 science centers and available on the web, as well as live interactive presentations by the lead researchers.